PECASE: Novel Laser-liquid Technology for Processing and Measurement

ABSTRACT The proposed research is to study laser-liquid interactions that are relevant to a wide range of applications, including manufacturing, materials processing, diagnostics, and biological systems. Specific topics of investigations are laser processing using non-classical heating mechanisms and laser-based temperature and concentration measurement and mapping. The research ideas are considered to be novel. The PI has arranged international collaborators with a leading Japanese researcher. Strong potential industrial support is evident. The PI's plan on education have activities that involve high school students, undergraduates, graduates, and teachers themselves. The idea of mentoring Westinghouse contest students is noted. The PI will also emphasize the transition from student to researcher/professor for graduate students.